REU:Sedimentation in Thermospheric and Psychrospheric BasinsA Comparison of the Sulu and South China Seas

The project will study cores in the Sulu Sea and South China Sea in order to contrast a silled, anoxic basin with an open orygenated basin, respectively, during a glacial to interglacial cycle. The advantage of a study of this type in this area is that an open ocean study area of anoxic (or at least oxygen deficient) conditions does not have the problems of terrigenous input during periods of low sea level as would be found in the more common continental margin sites. The study involves foraminiferal studies, oxygen and carbon isotopic studies, and bathymetric distribution of benthic foraminifera. These studies would determine the paleoenvironmental conditions during the glacial and interglacial periods, examine the controls on benthic populations in a shallow silled basin, and provide a baseline study in an area where furture OPD drilling may occur. The paleoenvironmental may be used to study the glacial to interglacial contrasts in monsoonal characteristics in the western Pacific.